A Broad Research Program in the Sciences of Complexity

The Santa Fe Institute (SFI) will conduct multidisciplinary research in the science of complexity. SFI will run a visiting scientist program, a workshop program, and maintain its summer school on complexity and its education and outreach activities. The organizing themes central to all the SFI workshops and the visitor program include evolutionary dynamics, integrating form and organization with dynamics, robustness of natural and social systems, and complex networks dynamics. Researchers involved in the SFI activities will come from many disciplines, including biology, physics, mathematics, computation, and the social behavioral, and economic sciences. The techniques of complexity, chaos, and adaptive systems provide the unifying intellectual basis for the proposed studies. Graduate student and postdocs are integral to all of the SFI activities. SFI also will serve as the host for an REU Site program and a program that will provide broadening, multidisciplinary research experiences to physics graduate students.